RII FEC: Empowering Community Resilience with Sustainable Energy and Water Reuse Systems

Extreme weather events result in frequent and widespread power outages as well as shortages of clean and safe drinking water in the impacted communities. This project aims to develop Mobile Energy-Water Reuse Systems (MEWRS) to provide a safe and reliable water and energy supply in local communities. Specifically, this research will design new solar cell systems capable of supplying stable electricity services to address the overload/blackouts communities often face during natural disasters. New electrochemistry technologies will also be developed to offer reliable potable water sources at the community level. The team will deploy MEWRS to targeted sites to test their ability to meet unpredictable needs for low-cost energy and clean water without reliance on external resources and/or skilled expertise. The project is also partnering with relevant industrial participants to design, assemble, and manufacture MEWRS components. Integrated with these research activities, this project will help recruit and train current and future workforce in renewable energy, water treatment, waste recycling, and artificial intelligence skills. Given the high solar radiation level in Louisiana, Mississippi, and Nevada, such solar-powered, clean, and healthy water generation systems are expected to promote the sustainability of the environment, health, and economies of communities in the three involved states.

The project will facilitate energy-water resilience at the community level with decentralized systems by: (1) developing a portable energy generation system with a new class of perovskite solar cells with excellent stability and high-power conversion efficiency using carbon quantum dots and phase stabilization molecules; (2) designing, fabricating, and testing an energy-efficient, water purification treatment train with an innovative and synergistic combination of sonochemical and electrochemical advanced oxidation process without costly added chemicals; and (3) integrating and deploying MEWRS for on-site delivery of energy and high-quality potable water to help communities timely adaption to drastic changes. The education/outreach efforts include: (1) recruiting, training, and mentoring a high-quality workforce involving junior faculty, postdocs, and graduate/undergraduate students to support the design, fabrication, and testing of MEWRS; (2) transferring technologies through industry and community engagement; and (4) increasing society/public awareness and knowledge of cutting-edge science and technology through outreach to local K-12 schools, science museum/library, and social media.